CAREER: Mechanistic Foundations for Sustained and Scalable Hydrogen Generation from Stimulated Rock Formations

Hydrogen is an important industrial commodity and energy carrier used in applications ranging from manufacturing and chemical production to electricity generation and energy storage. Certain rocks deep beneath the Earth's surface naturally react with water to produce hydrogen, offering a potentially abundant source of hydrogen. Although these reactions may be enhanced by engineering interventions, scientists do not yet understand how to sustain long-term hydrogen production or how these processes influence the stability of the surrounding rocks. This project will advance fundamental knowledge needed to develop safe and sustainable hydrogen production as a reliable and scalable energy source. While addressing this societal challenge, this project will also prepare scientists and engineers to become the next generation energy workforce. The project includes a residential summer research experience for high school students, development of hydrogen-themed graphic novels for K–8 learners, and creation of a research-informed textbook to support undergraduate and graduate education in subsurface hydrogen systems.

This Faculty Early Career Development (CAREER) award will be used to advance a mechanistic understanding of the coupled chemical, mechanical, and fluid-flow processes governing hydrogen generation and transport in fractured iron- and magnesium-rich rocks. Laboratory experiments will quantify how hydrogen production changes with reactive surface area, determine how mineral precipitation on rock surfaces limits long-term hydrogen generation, evaluate whether chemical stimulation can restore hydrogen production, and assess how these processes alter rock strength, fracture permeability, and gas transport over time. A particular focus will be on understanding whether engineering interventions that increase hydrogen production also weaken the rock formation, thereby affecting the long-term performance and stability of hydrogen-generating systems. Advanced laboratory characterization methods, including microscopy, mineralogical analysis, three-dimensional imaging, gas analysis, fluid chemistry, and acoustic measurements, will be integrated with predictive modeling to develop scaling relationships, reactive transport models, and permeability evolution models that improve understanding of hydrogen production and transport in reactive geological systems. The resulting knowledge will improve the scientific basis for designing and managing engineered geological hydrogen systems and will have broader applications to geothermal energy development, carbon mineralization, nuclear waste disposal, and other subsurface energy and environmental technologies.